Investigation of Thermally Stable Contacts on Silicon Carbide and Gallium Nitride for High Temperature Device Applications

The PI will establish a new research program investigating the metallisation schemes which offer potential for implementation if wide band-gap (GaN, SiC) semiconductor devices. Her research will combine knowledge of interfacial reactions and materials properties with an understanding of the physics of Schottky barriers and the associated interfacial current transport mechanisms.